CAREER: Application-Driven Approach for Building Run-Time Systems for Future Teraflop and Petaflop Architectures

CCR-9876179

"CAREER: Application-driven Approach for Prototyping Run-Time
Systems for Future Teraflops and Petaflops Architectures"

Nikos P. Chrisochoides

Recent feasibility studies for the next generation of Teraflops and
Petaflops parallel architectures indicate that these machines will be
multi-layer systems that consist of many layers of similar components
for memory, processors, and interconnects with different levels of
performance. Such designs will widen the latency gap between memory
and CPU access to a point where no form of CPU-initiated data movement
from memory will be satisfactory. To solve this, research needs to be
directed towards hardware like "smart" memories that are pro-active
with regard to memory-transfers, algorithms, and software. This
research focuses on the development and evaluation of latency tolerant
algorithms and run-time software support systems for adaptive
computations on a multi-layer parallel platform that is "isomorphic"
to future Teraflops and Petaflops systems. This project will have an
immediate impact on Petaflops Hybrid Technology Multi-Threaded (HTMT)
design by providing hardware designers with feedback based on the
behavioral and structural analysis of an end-to-end unstructured and
adaptive application from fracture mechanics. Also, this project will
provide a testbed for training the next generation of computational
scientist to effectively use such multi-layer parallel platforms and
help computer engineers to understand the hardware requirements of
large-scale applications.